SBIR Phase I: Recycling Painted Automotive Thermoplastics

*** 96-61155 Wisner This Small Business Innovation Research (SBIR) Phase I project will test a new process for recycling painted automotive thermoplastic parts. Recycling these products is hampered by residual paint particles in the recycled material. The new process focuses on 1) segregating the individual plastics, 2) debonding the paint chemically and removing it, 3) recovering the thermoplastics, and 4) assuring that the recycled plastics meet the critical needs of the end user. The goal is to deliver recycled material with properties very near virgin material at a cost lower than the virgin price. Commercial applications are expected in various plastics manufacturing operations, such as automobile bumpers, where high-quality recycled plastics are needed. In large scale use, plastics recycling could save one-third of all waste materials now being discarded in landfills. ***